Amazon Voyage: Vicious Fishes and Other Riches

The Miami Museum of Science, in collaboration with the Science Museum of Minnesota, will develop a 5000-sq. ft. interactive, bilingual traveling exhibition titled "Amazon Voyage: Vicious Fishes and Other
Riches." The exhibition will immerse visitors in the Amazon's rich diversity through direct contact with some of its most (ill-deservedly) notorious denizens. Spotlighting the rarely seen research conducted by renowned North- and South American scientists, "Amazon Voyage" will present visitors with the scientists' ongoing work. Visitors will discover that economy and ecology of the Amazon are intertwined, and explore their own connection to this region through the global trade in ornamental fish, arriving at a heightened appreciation of how personal choices can influence environmental outcomes.